Postdoctoral Research Fellowship in Chemistry

Dr. William H. Green has been recommended for a Postdoctoral Research Fellowship in Chemistry Award. Dr. Green's doctoral degree was from the University of California at Berkeley under the supervision of Professor C. Bradley Moore. He intends to continue his research at Cambridge University under the sponsorship of Professor Nicholas C. Handy. Dr. Green's area of Postdoctoral Research is in the area of Ab initio studies of highly vibrationally excited polyatomic molecules.